NER: Novel Electrochemically Self Assembled Nanowire Infrared Photodetectors

This research is focused on demonstrating novel ROOM TEMPERATURE
infrared photodetectors based on electrochemically self assembled nanowire
arrays. Photodetection is based on photoexcitation of electrons from
subband states in the nanowire to trap states in the surrounding
insulator. This leads to an "inverse" photodetection effect whereby the
conductivity of the photodetector drops when irradiated with infrared radiation.

Preliminary experiments [Appl. Phys. Lett., Vol. 79, 4423 (2001)] have
shown that these photodetectors can operate at room temperature with a
signal to noise ratio of 45 dB. The purpose of the NER project will
be to extend this result to create (1) multi-colored detectors using
different sized nanowires self assembled on the same wafer, and (2) a
complementary photodetector where a normal photodetector is synthesized
in series with an inverse photodetector. The complementary photodetector
will be able to detect a very narrow band.

This research will involve significant work by undergraduate students.
The samples that exhibited the novel photodetection effect were
prepared by an undergraduate student in the PI's lab.